MSP-Network: A Technical Assistance Design Project

The proposed design study will create a MSP Network (MSP-NET), a web-based interactive electronic community for MSP grantees. The network will: (1) encourage sharing of resources, problems, strategies and solutions to issues; (2) connect MSP projects with other resources at NSF and the Department of Education; (3) permit interaction within MSP projects; (4) provide MSP projects and the program as a whole with a public presence, publicizing the effort, and disseminating positive results.